Beauty-2000 7th International Conference on B-Physics at Hadron Machines; Sea of Galilee, Israel; September 13-18, 2000

Dr. Schlein proposes to invite students and post docs to attend a B-Physics Conference at which results from BELLE, HERA-B, BABAR as well as future experiments will be discussed.